Presidential Young Investigator Award: Laminar Separated Flow

A series of analytical and numerical investigations on laminar separated flow will be carried out. These include the separated flow past a freely falling sphere and unsteady flow past oscillating circular cylinders.